Metamorphic and Isotopic Studies of Mylonites

In the evolution of mountain belts, major episodes of tectonism are often recorded by the development of rocks of the mylonite series. The relationship of deformation and associated chemical changes, at the mineral and whole rock scales, to radiometric ages is the objective of this research. The size of mineral and isotopic equilibrium domains developed during mylonitization of mafic rocks and the response of zircon and titanite will be investigated. Results will lead to applying concepts of domainal equilibrium on measuring absolute ages of selected faults in the Southern Appalachians and their geodynamic implications for the accretionary history of the Appalachian Mountain belt.